Analysis of Holostean Pituitary Pro-opiomelanocortin Systems

The pituitary hormone, adrenocorticotropin (ACTH), is derived from the precursor protein, pro-opiomelanocortin (POMC). This precursor not only contains the sequence of ACTH, but also the sequences of alpha-melanotropin, beta-melanotropin and the endogenous opiod peptide, beta-endorphin. POMC is synthesized in two regions of the pituitary as well as in distinct sets of neurons in the central nervous system. Although this biosynthetic pathway is present in all extant vertebrates, few studies have attempted to explain how this biosynthetic pathway evoluted. Insights into this issue can be obtained from studies on species that appear to exhibit traits that can be considered ancestral. This study will focus on two "mainline species," the holostean fish, Amia calva, and the Australian lungfish, Neoceratodus forsteri. These species occupy pivotal positions in the phylogeny of the bony fish. The holostean fish are on a line of evolution which gave rise to the teleosts, the modern bony fish, and the lungfush are on the line of evolution which gave rise to the tetrapods. The projects in this proposal will focus on the biochemistry of the POMC end products in these species. These studies will provide new information on the evolution of the pro-opiomelanocortin biosynthetic pathway and will further our understanding of the mechanisms involved in production of chemical signals by endocrine cells.